Research Experience for Undergraduates in Prairie Ecology at Prairie Research Natural Area

This award will establish an REU Site at the Konza Prairie/Long-Term Ecological Research Site. The program will offer ten undergraduates the opportunity to study tall grass prairie ecology. Foci of Long-Term Ecological Research (LTER) project on Konza Prairie include the study of fire and grazing on native tallgrass prairie. To facilitate investigation of these impacts, watersheds on Konza Prairie have been assigned to different burn regeims. Additionally, native and domestic grazers have been introduced to many watersheds. Thus, Konza Prairie offers a unique opportunity for the study of many aspects of prairie ecology. The REU project will involve several components including, independent student research, rotation through existing LTER core research projects, student journal discussion groups correlated with faculty seminars, an eight- week ethics course, and several field trips. In order to enhance their professional development, students will participate in two national scientific meetings. Each REU student will have both a faculty and graduate student mentor to support their research research efforts. At the conclusion of the summer, students will make an oral presentation of the results of their research and, in conjunction with their mentors, will prepare and submit projects to journals for publication. The Konza Prairie REU experience will offer students a unique opportunity to study the ecology of the tallgrass prairie in a productive and supportive environment.